NSF Young Investigator: Theoretical Underpinnnings of Formal Analysis of Concurrent Systems

This research addresses automated tools for design and verification of finite-state concurrent systems and the theoretical underpinnings of formal analysis of concurrent systems. Application of the tool to verification of communications protocols and to other real-world concurrent systems are examined. The theoretical investigations provide insight into reasoning about real-time and probabilistic behavior of systems.